Mathematical Sciences: NSF Young Investigator

This research, supported by the National Science Foundation Young Investigator award, will concentrate on various problems related to the Einstein equations. Many of these problems are suitable for the application of perturbation methods in the presence of nontrivial kernel for the linearization. The National Science Foundation Young Investigator award recognizes outstanding young faculty. This award recognizes the recipient's strong potential for continued professional growth as a research mathematician and for significant development as a teacher and academic leader. //